RPG: Molecular Mechanisms of Regulation of GAP-43 Promoter by bHLH Transcription Factors

9510658 Chiaramello The molecular mechanisms underlying mammalian neurogenesis are still elusive. However recently, a number of neuronal genes that specify neuronal cell fate has been identified. Some of them encode transcription factors that contain a basic-helix-loop-helix (bHLH) motif. These neuronal genes are grouped in two specific categories: the proneural genes and the neurogenic genes. The proneural genes define a state that makes cells competent to become neuronal precursors, whereas neurogenic genes form a functional network that is thought to convey regulatory signals from one cell to the next to allow the development of mature neuronal cells. These genes are activated in a precise spatial and temporal manner in order to orchestrate this complex series of events leading to neuronal differentiation. These genes encode various basic-helix- loop-helix transcription factors that regulate tissue-specific transcription of various neuronal target genes. These bHLH proteins form various dimers through the helix-loop-helix (HLH) motif and bind to a specific cis acting element referred as E-box through their basic domain. They have been classified into distinct classes, based on their structure and pattern of expression. Class B can only form heterodimers with a class A bHLH protein and exhibit a restricted spatio-temporal expression. The variety of heterodimeric complexes formed between two bHLH proteins provides a molecular mechanism responsible for differential transcriptional regulation of target genes in different cell types and developmental stages during neurogenesis. A wealth of data demonstrates that bHLH transcription factors critically contribute to the events of determination, differentiation, and maintenance during neurogenesis. However, no specific neuronal target gene have yet been identified. This proposal deals with the detailed study of the events determination, differentiation, and maintenance during neurogenesis. However, no sp ecific neuronal target gene have yet been identified. This proposal deals with the detailed study of the transcriptional regulation of the mammalian neuronal gene, GAP-43, which is the first neuronal gene to be modulated by developmentally regulated bHLH transcription factors. Therefore, the elucidation of the molecular interactions between the neuronal bHLH transcription factors and the GAP-43 promoter region will lead to a better understanding of mammalian neuronal differentiation and the functional roles of bHLH proteins at orchestrating gene expression at different stages of brain development.